Conference on the "New Institutionalism" College Park, MD - February 1994

The "new institutionalism" is one of the most promising theoretical developments in social science. It ranges across disciplines such as political science, economics, legal theory, and sociology. The early years of political science (from 1900 through the 1940s) were marked by an almost exclusive study of formal institutions such as legislatures, executives, the bureaucracy, and international organizations. The study of politics was highly legalistic. From the 1950s through the 1970s political science shifted gears toward the study of individual behavior. A useful corrective came since the late 1970s when, prodded by economics, political science returned to the study of institutions. This "new institutionalism" went beyond legalisms to study how institutions arose and to encompass not only formal structures, but also ideas, value systems, norms, and culture. The "new institutionalism" is hardly of one piece. Some of its adherents believe that formal structures matter most, others that informal institutions such as ideas and values are equally important. Some institutionalists use an economic approach, seeking to explain how people manage to cooperate when there are many incentives for them not to do so. Others abjure this way of thinking, focusing instead on how history shapes policy outcomes. In this research conference the investigators bring advocates of these many perspectives together. The objective is to determine the contours of the "new institutionalism," to seek out areas of agreement, and to set out clearly what disagreements remain. The investigators have broken down the conference into five key areas of concern to political scientists and other social scientists: international regimes; property rights; the state; constitutional design and democracy; and, organizational theory. The researchers will also have papers and panels presenting overviews of the field and research agendas for the future. The conference organizers will publish the papers and remarks and disseminate them widely.